Dissertation Research: An Ethnoarchaeological Study: Subsistence Economies in the Melendiz Plain, Central Anatolia, Turkey

9319164 Watson Under the direction of Dr. Patty Jo Watson, Ms. Ertug-Yaras will collect data for her doctoral dissertation. She will study current subsistence practices in a traditional Turkish village located in the Cappadocia region, south-east of Ankara. Ms. Ertug-Yaras is an archaeologist interested in understanding the past and she will examine present and recent practices to glean information relevant to this goal. The economy of the village is based on agriculture, basically field cropping and gardening, as well as the husbandry of sheep, goats and cattle. Although the economy is integrated into the regional, national and even international systems, preliminaries studies indicate that local knowledge about pre-market oriented techniques still exists. Ms. Ertug-Yaras will collect basic social and demographic data. She will also observe and document current subsistence activities and especially focus on the gathering of wild plants which still play an important economic role. Use of animals and herd management strategies will also be examined. Finally extensive structured interviews will be conducted to record strategies which are no longer employed. The results will then be applied to an archaeological site in the region. The domestication of animals such as goats and sheep and plants such as barley and wheat occurred just over 10,000 years ago in the Near East and sites in Turkey and adjacent regions document this process. This Neolithic revolution marks a major turning point in human prehistory and it laid the groundwork for the development of complex societies. While many relevant sites have been excavated, archaeological material does not speak for itself and can be difficult to interpret. Studies of present day peoples who appear to engage in some of the same activities provide an extremely useful interpretive context. The Ms. Ertug-Yaras has been fortunate enough to locate a region in which both early archaeological sites and a range of traditiona l activities are present. This research is important for several reasons. It will provide data of value to archaeologists who work in many parts of the Near East. It holds the potential to shed new light on the origins of complex society and will assist in the training of a promising young scientist. ***